Molecular Studies in the Millimeter and Submillimeter Spectral Region

Professors De Lucia and Herbst are continuing their studies of radiative and collisional properties involving small fundamental molecular species. This collaborative experimental and theoretical program, supported by the Experimental Physical Chemistry Program, provides important basic scientific information of potential use in various diverse fields, including molecular astrophysics, quantum electronics, and atmospheric science. Using the tools of millimeter and submillimeter spectroscopy, De Lucia and Herbst are studying the collisions of gas phase species at very low temperatures (below 5 K), the mechanisms and the modeling of intermolecular rotational energy transfer, and the spectroscopy of internal rotor states in various simple molecules.